Summer Research Program in Operator Theory and Topology

The Department of Mathematics at California Polytechnic State University, San Luis Obispo will provide opportunities for summer research for up to six undergraduates. Recruitment will take place nationwide, but our recruitment will be focused on students from universities in California. The research emphasis will be in the fields of operator theory and topology. The students will attend seminars with participating faculty and work individually with faculty, many of whom have experience doing research with undergraduates. The students will also have the opportunity to work collaboratively with and give talks to their peers, as well as write a final report with their research results. The program will run for eight weeks, and should be compatible with both a quarter system and a semester system.